Geometric Tools and Applications

Research in geometric algorithms and data structures has flourished in the last decade. This field has made a large number of fundamental contributions to the understanding of geometric structures and geometric computation. This combination of theory and practical significance has been key to the vitality of this field. This continued vitality depends on a healthy balance between these two influences. This project is concerned with the design and analysis of fundamental algorithmic tools for geometric problems with applications in computer vision, pattern recognition, computer graphics, computational statistics, and computer-aided manufacturing. Emphasis will be placed on practical, implementable solutions to these problems, and both theoretical and empirical analyses of their performance.